Benedict Precollege Statistics Project (BP STAT): Increasing Access to Science and Mathematics

*** Benedict College will initiate a 5-week, summer residential, Young Scholars project in Statistics for 30 students entering grades 10 and 11. The summer poroject, with academic year follow-up activitiers, will involve economically disadvantaged students from the state of South Carolina. The students will be involved in solviang real-world research problems requiring statistical analysis. Activities include classroom lectures and discussions, hands-on laboratory expleriences, field trips, research, and career counseling. ***